CAREER: Temporal dynamics of microbial and viral function and adaptation in hydrothermal vents

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2). This project is funded by the Biological Oceanography and the Ocean Education Programs (Division of Ocean Sciences) and the Systematics and Biodiversity Science Cluster (Division of Environmental Biology).

Microbes and viruses living near deep-sea hydrothermal vents act as filters for carbon, sulfur, iron, and other essential elements that emerge from the seafloor and flow into the global oceans. However, due to the challenges associated with sampling the deep sea, most studies to date have captured only snapshots of these communities, leaving significant knowledge gaps about how microbes and viruses adapt, evolve, and respond to changes in this environment. The researchers use infrastructure from the Ocean Observatories Initiative to conduct high-resolution monitoring of genetic changes over five years to investigate microbial communities’ function, ecology, and evolution at hydrothermal vents, which are thought to be one of the most ancient habitats on Earth. Data from this project are expected to be a valuable scientific resource for these and other researchers to address future questions. For example, it will inform our understanding about the early evolution of life on Earth and how microbes and their viruses respond to anthropogenic disturbances like deep-sea mining and climate change. This project engages and trains undergraduate students as scientific partners at all stages of the research process, facilitating their entry into scientific networks. Additionally, a new course guides college students in examining science within its cultural, political, and social context. The project also includes a program with a local elementary school to increase science literacy among young students.

The main objective of this project is to understand the ecological and evolutionary forces that mold hydrothermal vent microbial and viral populations over time. This project uses instruments from the Ocean Observatories Initiative Regional Cabled Array (OOI RCA) at Axial Seamount in the Northeast Pacific Ocean to collect hydrothermal fluid and DNA samples at regular intervals, approximately every 10-20 days over five years, to yield a time series of microbial and viral abundances and metagenomes. The specific scientific aims of this project are to: 1) identify environmental drivers of microbial community composition and function through time-series analyses of 16S rRNA amplicon and metagenomic datasets combined with chemistry, pH, and temperature data; 2) use single nucleotide variant and gene content variation over time in metagenome-assembled genomes to investigate evolutionary dynamics of microbial populations; and 3) assess models of viral population dynamics by tracking microdiversity within viral and microbial metagenomes over time. Comparative samples and data collected from other vent sites are used to determine the generalization of the results.